Multi-Point Magnetospheric Studies

The investigators will continue scientific studies of the magnetosphere with detailed data analysis of multi-point observations. The effort will take advantage of the unprecedented coverage provided by ground-based observatories and satellites launched as part of NASA's International Solar Terrestrial Physics Program. Specific goals are to study the pressure distribution in the magnetosphere, to assess the accuracy of global models, and to demonstrate techniques for assimilation of data. The work includes examining plasma pressure distributions during storms and substorms and comparing the pressure values with those inferred from low-altitude Defense Meteorological Satellite Program satellites. The results will help develop a reliable model for pressure in the magnetosphere and pave the way for data assimilation in future space weather models.